DSU-SMILE: A Science and Mathematics Initiative for Learning Enrichment

The HBCU-UP program at Delaware State University will focus on engaging incoming freshman STEM students in programs that will enhance their academic success and identification with the University and their major discipline. We expect to significantly improve the retention and graduation rates of minority STEM students. STEM freshmen will be divided into learning communities of 5 - 6 students who will enroll together in three linked courses: a mathematics class, an English class and Freshman Seminar. Each learning community will be assigned a peer mentor who will communicate with their mentees daily and ensure that they attend their classes, go to tutoring and office hours, and meet with their study groups. Faculty mentors responsible for 4 - 5 of the freshman learning community groups will meet weekly with the peer mentors and will lead co-curricular activities involving both students and mentors. The project brings together STEM and English faculty and student services administrators to focus on revising the freshman experience of STEM students to involve them in a community of peers, peer mentors and faculty.
To support student engagement with research we will continue the successful undergraduate research program begun in the first HBCU-UP project. The proposed program will support faculty development and research. Faculty will submit research proposals for research grants to work with undergraduate students. These proposals will be reviewed by a committee. This process will help faculty develop better student research projects and give them experience in writing research grants.